A CHARA Spectroscopic Facility

The Georgia State University (GSU) program in speckle interferometry has provided most of the modern high resolution, high accuracy measurements for binary star astrometry. This award will support a new spectroscopic facility to complement this program based upon a fiber optic fed spectrograph and a novel Multi-Telescope Telescope. This instrument will be installed at the newly commissioned GSU Hard Labor Creek Observatory and will extend capability in two several new areas of stellar astrophysics. For example, spectroscopic observations of binary stars in combination with speckle orbits can greatly increase the accuracy of stellar mass determinations. The facility will be used to measure radial velocities near critical phases of those speckle binaries with periods of the order of one year or less, those with eccentrics orbits, and those with faint secondary components. Another major effort to be undertaken with the new facility will be to determine whether the mass loss of Be stars into the surrounding disk is the result of both rapid rotation and the presence of nonradial pulsations. Observations of variable photospheric He I and circumstellar Hb emission over hours to days during an outburst are required. Both of these efforts require a dedicated facility.